Imaging in the Physical Sciences

Interdisciplinary (99) In this proof-of-concept project a team of Imaging Science faculty is developing a set of learning and teaching modules to support a new interdisciplinary course, "Imaging in the Physical Sciences", that introduces first-year university science and engineering students to the basics of imaging systems and imaging applications. The "imaging chain" - observation, data capture, processing, display, and perception - provides both motivation and context for the study of concepts in physics, chemistry, materials science, and mathematics. A comprehensive textbook with teacher's and laboratory manuals is also planned.